Particle and Nuclear Astrophysics and Cosmology in the Next Millennium; Snowmass, Colorado

9408311 Peccei Support is requested from the National Science Foundation to partially cover the costs of holding a two-week Summer Study in Snowmass, Colorado on future directions in Particle and Nuclear Astrophysics and Cosmology. The Summer Study is jointly sponsored by the Division of Astrophysics, the Division of Nuclear Physics and the Division of Particles and Fields of the American Physical Society. The principal goal of this meeting is to allow members of the disparate high energy and nuclear physics communities and of the community of astrophysicists and astronomers to examine jointly the opportunities that are opening up in this cross disciplinary field and to provide a critical evaluation of the future course of this emerging discipline. ***